Research Experiences for Undergraduates in Chemical Synthesis at Colorado State University

9322087 Greenberg Colorado State University Dr. Marc M. Greenberg and other members of the Chemistry Department of Colorado State University are being supported for a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1994-6, six undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. The focus of the program will be on chemical synthesis.